SBIR Phase I: Selection and Storage of Cord Blood Stem Cells in a Novel Bioreactor

*** 9760236 Pykett This Small Business Innovation Research Phase I project will examine the ability of a novel three-dimensional biomaterial, Cellfoam, to pre-select, expand, cyopreserve and transduce hematopoietic progenitor cells (HPCS) present in cord blood (CB). Preliminary data from NSF Phase I award DMI-9661006 show that CD34' HPCs cultured in Cellfoam without exogenous cytokines are expanded 8-10 fold while maintaining their viability and multipotency. IIPCs can be cryopreserved in Celifoam, thawed, re-cultured, and transduced efficiently with a retroviral vector. We propose to examine a novel application of Cellfoam: the integrated pre-selection, expansion, cryopreservation and transduction CB HPCS. We will utilize cells from either unfractionated, Ficoll purified or CD34' selected preparations of pooled CB samples to evaluate the survival, phenotype and multipotency of cells pre-cultured in Cellfoam without cytokines for up to four weeks and cryopreserved in the same units for one month. We will also examine the retroviral transduction of thawed HPCs over three weeks. By using different CB fractions we may isolate novel, critical subsets of HPCS. This work will facilitate commercialization of Cellfoam systems for the first-ever integrated selection, storage and modification system for CB HPCs in an HPC banking market anticipated to exceed US $600 million annually in the next decade. ***